U.S.-Korea Planning visit for study of cellulosic fine materials

INT-0222570
North Carolina State University
$8,400

The project is about a planning visit for developing collaborative research work in cellulosic fine materials with researchers at Chungnam National University in Korea. Scientific study of cellulosic fine materials would help drainage improvement and efficient utilization in papermaking.